A Short Course on Designing Microelectronic Systems Using Field-Programmable Gate Arrays

9353957 Bouldin A five-day short course will be offered twice--once in Knoxville, TN, and again in Sacramento. CA. The course introduces new techniques for designing microelectronic systems that rely on rapid prototyping using field-programmable gate arrays (FPGAs). Thus, a design can be taken from initial specification to a working implementation involving all the steps in the design, debugging, and evaluation cycle. Laboratory exercises permit each participant to complete a project that can be taken back to their home institution. Also, each participant receives a "starter kit" containing class notes, reprints, sample completed projects and instructions on how to obtain donations of vendor hardware and software.